Adsorption, Film Formation, and Conformational Stability of Proteins at Interfaces

9315123 Damodaran This project is on research to study various aspects of protein adsorption and film formation at interfaces. The main objectives are: (1) to elucidate the role of the electrochemical potential of proteins in adsorption at the air-water and silica-water interfaces; (2) to investigate the adsorption and film forming behavior of magnetoferritin at these interfaces; (3) to study the molecular factors that govern competitive and coadsorption of proteins from solution; and (4) to study the conformation of proteins in situ at the air-water interface. This research has potential importance to: (1) understanding protein stability; (2) the development of information storage devices; and (3) the production of new chemicals by bioprocesses. ***